Industry/University Cooperative Research Center for Intelligent Maintenance Systems (IMS)

The objectives of this multi-campus research Center are 1) to explore, conduct research and to bring about innovation and practical solutions by focusing on the industrially relevant research needs; 2) to foster collaborative research projects between industrial and academic engineers and scientists; and 3) to promote interdisciplinary and intra-university research activities and to nurture students through testbed and collaborative projects.

The Center proposed four key program areas, namely 1) production equipment e-monitoring and e-maintenance systems; 2) web-enabled industrial systems management and optimization program; 3) smart business to devices technologies program; and 4) web-enabled development tools for e-maintenance application systems